Conference: Workshop on the Dual Nature of F Electrons, Idaho National Labs, Idaho Falls, May 19th-23rd 2025

Non-technical Abstract

This award provides funding for researchers, early career scientists, and graduate students to attend the Workshop on the Dual Nature of F Electrons, Idaho National Labs, Idaho Falls, May 19th-23rd 2025. The workshop aims to connect renowned experts with early career scientists and graduate students, offering an introduction to current topics in the field, sharing scientific advancements, exchanging ideas, and encouraging collaborative research to accelerate scientific discovery. The involvement of early career scientists and graduate students will enhance their scientific education, advance their careers, and fully prepare them to contribute to the U.S. scientific workforce.

Technical Abstract

Understanding strong correlations is crucial for discovering and designing functional materials with novel properties. These correlations and anomalous behaviors are particularly pronounced in materials containing f electrons, such as those based on lanthanide and actinide elements. Advances in the field of strongly correlated f materials will not only enhance our understanding of electron correlations but will also have significant implications for research on various families of functional materials.